How Expert Are Factfinders? Evaluating the Reliability of Interviews in Child Abuse Cases

This study is concerned with the weight given to a child's testimony in child sexual abuse cases. Sixty-four individuals, 32 professionals and 32 student proxies will read and evaluate interview transcripts along a number of dimensions. Each person will evaluate three scenarios that manipulate characteristics of the interviewer, characteristics of the interview itself, and techniques used in interviewing. The effort will be to determine which factors participants find to be salient in judging the credibility of children and other matters related to these cases. If interviewers and factfinders are knowledgeable about and can recognize the factors that produce suggestibility in child interviews, then we can be more confident that the judicial system is less likely to falsely convict or wrongly acquit the accused in sexual abuse cases. If not, there are implications for needed training for professionals who interview children, judges who rule on the admissibility of child interviews, and jurors who must evaluate this evidence.